Diffusion and Cross-Diffusion in Pattern Formation

Abstract
Ni

Professor Ni plans to continue his research in understanding
mathematically the effects of various diffusion-related mechanisms.
Using calculus of variations and perturbation techniques, Professor Ni and
his collaborators have established the spike-layer solutions for an
activator-inhibitor system in morphogenesis by exploiting the gap between
the diffusion rates of the activator and inhibitor. Stability of such
solutions with single peak in one dimension is also proved. However, to
undrestand the complete dynamics, multipeak solutions in multi- dimensions
and their stability properties are very important and not yet fully
understood. They are currently under investigation. It should be noted
that the gap between the diffusion rates alone is not sufficient in
creating patterns, as is shown by the Lotka-Volterra competition-diffusion
system in the weak competition case. Thus, from the point of view of
pattern formation, the notion of "cross-diffusion" was introduced in 1979
by theoretical biologists. Cross-diffusion systems are both nonlinear and
strongly-coupled in the highest order terms, and are therefore
mathematically challenging. Professor Ni and his collaborators proposes
to study the effect of cross-diffusion: First, to obtain necessary and
sufficient conditions for cross-diffusion rates to create patterns, and
then to investigate their qualitative behavior as well as their stability
properties.

Professor Ni plans to continue his research in understanding, in a
mathematically rigorous manner, the phenomena and effects of various
diffusion-related mechanisms and hopefully thereby to have some impact in both
improving our ability in modeling more complicated or realistic situation in
applied sciences, as well as creating new and significant mathematics. In
this project, from the point of view of pattern formation, Professor Ni
intends to investigate the various "concentration phenomena" in diffusion or
cross-diffusion systems. These, in particular, include Turing patterns in
chemical reactions (e.g. the CIMA reaction), Gierer-Meinhardt's activator-
inhibitor systems (in modeling the regeneration phenomena of hydra) in
morphogenesis, and the Lotka-Volterra competitions with cross-diffusion (in
modeling segregation phenomena) in population dynamics.